Mathematical Sciences: Algebraic and Geometric Topology

9504607 Davis The method for classifying high-dimensional manifolds is surgery theory. Surgery is a mature subject, with the major open questions being the Borel/Novikov conjecture and the four- dimensional topological surgery conjecture. James F. Davis investigates topics connected with the Borel/Novikov conjecture: the implications of this conjecture for stable-diffeomorphisms of four-dimensional manifolds and for the study of manifolds with infinite fundamental group. Kent Orr investigates the homological and geometrical properties of the fundamental group and its transfinite lower central series. This centers on the parafree conjecture and its relevance to four dimensional cobordisms of three-manifolds, the study of knots and links in dimensions three and above, and the four-dimensional topological surgery conjecture. An n-dimensional manifold is a set of points which is locally modeled on an n-dimensional linear space. For instance, a surface is a locally 2-dimensional linear space. The principal problem of geometric topology is the classification of manifolds. Two manifolds are the same if there is a continuous function with a continuous inverse between the manifolds. One pathway to understanding manifolds is through the fundamental group. This provides a transition to algebra. The researchers emphasize the use of homological and geometric techniques, and focus on both high dimensional and low dimensional manifolds. Four-dimensional manifolds are of particular interest, as the results and techniques in this dimension manifest the harmony of the algebraic techniques which have found success in high dimensional manifold topology and the geometric techniques which prevail in dimension three. Investigating the foundations of manifold theory is important for geometry, algebra, physics, and differential equations. ***